Oceanographic Technical Services 2003-2005, R/V Cape Hatteras

0308583
Corliss
This 3-year award to Duke University provides support for technical services during NSF-funded programs on R/V Cape Hatteras, a 135' general purpose research vessel operated by the Duke-UNC Oceanographic Consortium (DUNCOC) as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. DUNCOC will provide one shipboard technician on each cruise of R/V Cape Hatteras to support seagoing research projects and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.
***